Effect of Alternating Current on the Dynamics of Colloidal Particles Near Electrodes

Abstract
CTS-0089875
J. L. Anderson, Carnegie Mellon University

Electrophoretic deposition is the procress where charged colloid particles are driven by an applied
electrical field towards the surface of an electrode and deposited there. Under certain conditions, the particles will still be mobile and self assemble before being depositedat a fixed surface location. There is a variety of desirable applications for this procedure, depending on the colloids, the electrodes and also the applied electrical field; in particular, the results obtained differ radically for direct currents and for alternating ones. The goal of this proposal is first to assess the currentlyavailable theoretical models (e.g. electrohydrodynamic, electrokinetic) and their limitaions. It is then to develop a theory and perform experiments which would include all the aspects of self-ordered aggregation for the alternating current case (e.g. Brownian motion, electrokinetice, colloid forces). Specifically, the expected to increase accuracy substantially above what has been obtained elsewhere with layer-averaged modeling.